Thermoregulation and Physiological Performance

Small strongly flying insects need not fly at high, narrow body temperatures, in terms of the balance of their heat gain or loss. Yet in fact they do so, and even have a variety of complex adaptations for actively regulating body temperature to high and narrow ranges. We will complete the study of how this thermal regulation works during flight itself, and how body temperature variation affects actual flight performance. To do this, we will first complete the construction of a computerized wind tunnel in which to carry out our experiments. Experimental use of this tool to examine a variety of specific issues in the heat-transfer biophysics and the temperature-dependence of flight lift and thrust will follow. We will also test an entirely new concept of why it is that intense animal activity, such as insect flight, is so invariably limited in its range of effective temperatures. This work will be important to a number of issues in basic biology, all revolving around the reasons why animals regulate their body temperatures, the range of ways in which they can do so, and their adaptations for making strenuous and demanding activity more efficient. It may also be extremely important to considering the possible damaging effects of global climate change, especially global warming, which may alter the thermal environments of such sensitive animals on a time scale much shorter than that of their ability to adjust.